Collaborative Research: Mathematical Studies of Certain Geophysical Models

Computer predictions of phenomena on large or global scales, for example
weather or climate forecasts, need to compromise between accuracy of the
predictions and available computing resources. It is therefore a grand
scientific challenge to derive global climate models which are reliable
and trustworthy. Exploiting certain geophysical balances, such as
geostrophic balance (due to earth rotation) or hydrostatic balance
(due to the shallowness of the ocean and atmosphere) geophysicists derive
reasonable, yet less complex, balanced models. It is therefore essential to
justify rigorously the validity of these models, for the relevant spatial
and time scales. The focus of the proposed project is on the analytical,
statistical and numerical properties of solutions to nonlinear ocean
dynamics models and turbulent sub-grid models. The first aspect of this
project is to: show existence, uniqueness and continuous dependence on
initial data, to some of these reduced geophysical models. In particular,
a two-layer zonal jet model, a planetary geostrophic ``thermocline'' model,
the lake equations with degenerate varying bottom topography and the
two-dimensional primitive equations. This is the first and the most essential
step in validating the derivation of these models. In order to justify the
long-time behavior of fluid dynamical models, one has to compare the statistical
properties of their attracting invariant sets, rather than compare individual
solutions. To do so, it is necessary to focus on models which include some
mechanism of dissipation. This project addresses questions related to the asymptotic
derivation of these models and the effect of numerical dissipation on their
solutions, which include boundary layer analysis. The second aspect of this
project is to: derive new large-eddy simulation models, the so-called alpha-models,
in the context of the two-layers geostrophic zonal jet models. The alpha-models
are asserted to reproduce the right energy spectrum for a wide range of large
scales. It is proposed to investigate this claim using rigorous analytical tools.
It is also proposed to perform computational tests on the newly derived two-layers
geostrophic zonal jet alpha-model to verify the above assertion. Furthermore,
it is proposed to explore the implementation of the alpha-models approach as
sub-grid models.

The grand challenge in climate prediction is that the mathematical equations
governing the ocean and atmosphere dynamics, are too difficult to study
analytically, and still prohibitively expensive computationally. Indeed,
it is well established, based on physical grounds and collected experimental
data, that atmospheric and oceanic turbulent flows involve a broad spectrum
of spatial and time scales. This in turn makes them inaccessible to the most
powerful and state-of-the-art computers. However, due to the rotation of the
earth and other geophysical situations, such as the shallowness of the oceans
and the atmosphere - in the sense that they are much wider than they are deep -
geophysicists take advantage of certain geophysical balances to derive simplified
balanced models. The first theme of this project is to: establish existence
and regularity of solutions to some of these nonlinear reduced models. This is
a crucial step in justifying the derivation of these models and their
consistency with the physical observations for the relevant length and time
scales. Furthermore, in global climate prediction one is interested in the
long-time statistical features of the climate. The second theme of this project
is to develop a systematic approach for deriving and studying new averaged
models, in the context of ocean and atmosphere dynamics, which are reliable in
reproducing the correct long-term statistics.